Duke University's Project CALC Test Site

Students are learning calculus in a laboratory setting and are discovering for themselves the concepts and problem solving power of calculus. The overall framework of the laboratory and the course materials being used were developed with NSF support at Duke University and are being tested in this setting.